Research in Nuclear Astrophysics, Nuclear Physics, and Particle Physics

9513893 Boyd This grant is for a program of experimental and analytical research in nuclear astrophysics, carried out under the direction of a Ohio State University faculty member. It will study nuclear reaction cross sections of relevance to big-bang nucleosynthesis, search for new nuclides near the region of proton instability (light isotopes of intermediate mass elements), and explore components of the a capture by 12C which is important to many aspects of the stellar evolution.. The experiments will utilize radioactive ion beam facilities in the Michigan State University and elsewhere. A preliminary design study of a possible new facility for neutrino aqtrophysics measurements will also be undertaken. ***